The Gromov-Witten invariants of curves, surfaces, and 3-folds

Abstract

Award: DMS-0072492
Principal Investigator: Jim A. Bryan

This project is primarily concerned with Gromov-Witten
invariants. The investigator will study the Gromov-Witten
invariants of a 3-fold X by determining the local contributions
of a suitably rigid curve C in X. In particular, the investigator
will study the integrality properties of such contributions and
their relationship to the number of certain BPS states in
M-theory as defined via the formula of Gopakumar and Vafa. For
nodal curves C, the investigator will continue his work with Katz
and Leung; for smooth higher genus curves C, the investigator
will continue work begun with R. Pandharipande. In collaborations
with Leung, the investigator will also seek to define a new
invariant of symplectic 4-manifolds which would specialize to the
modified Gromov-Witten invariants defined by Behrend and Fantechi
for algebraic surfaces with positive geometric genus (which in
turn generalized the modified invariants defined by the
investigator and Leung for K3 and Abelian surfaces). Such an
invariant would be better suited to study the enumerative
geometry of irrational surfaces than the ordinary Gromov-Witten
invariants.

In the physics of string theory, particles are replaced with
one-dimensional objects (``strings'') and so the path that a
particle traces out over time becomes a surface in space-time (a
``world-sheet''). The equations of string theory then tell us
that the surface should be a holomorphic surface (a Riemann
surface) mapped into space-time in a holomorphic manner. This has
led to the purely mathematical notion of Gromov-Witten
invariants. Gromov-Witten invariants study holomorphic mappings
of Riemann surfaces into higher dimensional geometric objects
(for example, projective manifolds). They have become important
invariants in geometry, topology, and algebraic geometry as well
as being central in string theory. Bryan's project specifically
addresses the problem of how the algebraic geometry of a
projective manifold is encoded in the Gromov-Witten invariants
and how they are tied to string theory. Algebraic geometry is a
classical subject in pure mathematics that has recently found
application in such diverse subjects as robotics and coding
theory; string theory is the leading candidate for a "theory of
everything", i.e. a single physical theory that describes all
known physical phenomenon.